Presidential Faculty Fellow

9350309 Kuo Develop numerical models and algorithms for signal and image processing, computer vision and graphics with multiresolution techniques such as wavelets, hierarchical splines and fractals. Produce high-quality scientific software in parallel or distributed computing systems for applications including HDTV, target recognition and tracking, scientific visualization, computer animation, multimedia and computer-aided education.